Hepatic Microcirculatory Transport Phenomena

The project is a novel attempt to develop a better understanding of hepatic solute transport processes at the anatomic sites where it occurs. This has not been attempted previously. The liver is unique in the body since the vascular wall of the capillaries is perforated, thereby permitting intimate contact between solutes in the bloodstream and the hepatocyte cell membrane. The specific objective is to develop an electro-optical method to experimentally quantify solute transport and uptake at this hepatocyte-blood interface. Such information is not presently available due to the complexity of the experiments involved and the three-dimensional structure of the liver. Most of the theoretical models presently available are developed using whole-organ experiments that require assumptions about the rates of uptake at the cellular level. The overall goal of this work is not to eliminate the use of black-box experiments, but rather, to test the assumptions made and to complement the data obtained on solute extraction using these models.